DMS- MSPA-Interdisciplinary: Optimum Quantum Error Recovery

0625966
Shor

In standard Quantum Error Correction, the input to a noisy system is embedded in a coded subspace, and error recovery is performed via an operation designed to perfectly correct specific errors, presumably a highly probable physical noise component. The PI's propose to reexamine the choice of recovery operation. Rather than perfectly correcting a subset of the error process, the proposed research will seek to maximize the entanglement fidelity of the recovered state to the input for a given noise model. This optimization may be calculated via a semidefinite program (SDP), a well-established form of convex optimization with efficient algorithms for its solution.

Research
The project's research objectives are to:
develop and analyze optimum recovery operations from noisy quantum channels,
extend the analysis of optimum recoveries to high dimensional quantum systems,
investigate the design of channel-specific encoding and recovery schemes, and
determine the impact of optimum recovery operations for fault-tolerant quantum computation.

Intellectual Merit
The proposed research will yield a novel approach to error correction in the challenging and emerging field of quantum information systems. By incorporating principles of quantum theory, information theory, coding theory, and optimization, the research will promote cross-discipline efforts between mathematics, physics, computer science, and engineering.

Broader Impacts
The results of this research can influence efforts throughout the field of quantum computation. Efficient error mitigation practices can prompt developments across the spectrum of activity, from physical experiments seeking feasible quantum computing devices to theoretical research on quantum computing applications.